Language Restrictions on Language Restructuring in the Spanish of San Antonio, Texas

9311742 Garcia Abstract Previous approaches to the study of change in ethnic languages in situations of language contact have attributed change solely to the combination of linguistic systems in contact and/or the language dominance of individual speakers. Recent research suggests that a constriction in the domains of ethnic language use must be considered in addition to external factors such as age, sex, social class, etc. This research will explore the idea that change is also due to the restriction in domains (socially defined settings) in which bilingual speakers use the ethnic language in the community. The Spanish spoken by Mexican-Americans in the United States, Southwest Spanish, is characterized by phenomena typical to language situations, for example, phonological transfer, loan translations, and lexical borrowings. This study will be conducted in a Spanish-English community (San Antonio) and in a home/family domain rather than a school domain, as in previous research. Sociolinguistic sampling and data collection will be conducted with young adults and adults. Data will be deposited in the University of Texas-San Antonio, Hispanic Research Center. Results of this research will add to our knowledge of Spanish sociolinguistics and will have potential application in bilingual education, language acquisition, and language policy and planning. ***